NSF Workshop on Research Directions in the Principles of Parallel Computing

A one day workshop on "Research Directions in the
Principles of Parallel Computing" is scheduled on June 28, 2012 at
Carnegie Mellon University (CMU) in Pittsburgh, PA. The workshop will
bring together researchers from academia and industry to inform,
discuss, and initiate collaborations on understanding the key research
challenges in the foundations of parallel computing, and directions to
possibly address these challenges. The emphasis of the workshop is on
theoretical approaches to parallel computation and how to bridge these
approaches with practice. It will be held the day after the ACM
Symposium on Parallelism in Algorithms and Architectures (SPAA), which
is to be held June 25-27, 2012 also at CMU.

The workshop will address several issues described in NSF's Advanced
Computing Infrastructure Strategic Plan including, but not limited to,
computational models, programming languages, rethinking the canonical
computing "stack" and new algorithmic paradigms. The workshop will
consist of approximately 20 invited speakers who will be asked to
present their thoughts on "what are three big research challenges in
the principles of parallel computing". Attendance to the workshop is
open to all students, faculty and industry researchers at no charge (as
space permits). The output of the workshop will be a public report
documenting the discussions. It is hoped this report and other
interactions at the workshop will have broad impact on future
directions of research in the theory and practice of parallel
computation.